Crystallization Behavior and Structural Properties of Model Semicrystalline Polyolefins

The main objective of this research proposal is to improve understanding of the
thermodynamic, kinetic and structural properties of non-oriented bulk crystallized
flexible chain polymers. Building on a foundation that established the important
independent structural variables that describe the crystalline state, and final properties, a
research program is described to advance the understanding of the interplay between
chain microstructure, phase structure, crystallization kinetics and morphology of the
dominant class of crystalline polymers, the polyolefins. Emphasis is given to novel
studies of model branched polyethylenes that serve as control microstructures to establish
the connection between molecular architecture and the semicrystalline morphology that
they assemble. Two sets of model branched polyethyelenes will be studied. One set of
precisely spaced branched polyethylenes serve as a bridge between the crystallization of
short-chain molecules and the more complex behavior of industrial-like linear low
density polyethylenes. The second set of model long chain-branched (LCB) random
ethylene copolymers will provide fundamentals for the effect of length and architecture
of LCB on the crystallization behavior of these polyethylenes from isotropic melts,
before additional effects intrinsic to flow, come into play. Details of the early stages of
the crystallization of these systems serve as a basis to describe the properties of H-link
and other types of LCB poly(propylenes) also subjects of study in this proposal.
The work on model systems will provide an opportunity for faculty and students
of the University of Florida and the FAMU-FSU College of Engineering to interact
closely toward integrating catalysis, macromolecular architecture and their path to the
ordered state beyond each group's laboratory boundaries.
The proposal also includes detailed work to substantiate a model of defect
microstructure for Z-N based isotactic poypropylenes, derived from previous studies, as
well as a continuation of the crystallization behavior of metallocene random propylene
copolymers. In this venue emphasis is given to integrate the dynamics of the
polymorphic behavior in the analysis of the overall crystallization and the linear growth
rates of these copolymers.
The FAMU-FSU College of Engineering is a jointly managed program of the
Florida State University, a Research I institution with an enrollment of 38,000 and
Florida A&M University, a historically Black University with an enrollment of 12,000.
Faculty hold joint appointments at both institutions, and students from both universities
enroll in the same engineering classes. The present enrollment at the College of
Engineering consists of approximately 50% minority students and over 25% women,
making it unique in a number of respects. The proposed work includes active
participation of graduate and undergraduate students and training in current techniques of
characterization of polymers. These activities parallel the commitment of the PI to
education of students in the area of Polymer Science and Engineering.